Tackling a Taxonomic Giant - the Genus Croton (Euphorbiaceae)

0212481
Berry
Under the direction of Prof. Paul Berry at University of Wisconsin-Madison, this project will study the species and relationships of Croton, one of the world's largest plant genera, with about 1,300 described species worldwide. This group was selected because it represents a significant segment of plant diversity (0.5% of all flowering plants), it is ecologically and medicinally important (especially in the tropics), yet the species are notoriously difficult to identify, and nobody has applied modern techniques to understand the genealogical relationships within the group. The project will conduct a broad molecular-based phylogenetic study of the genus, targeting about a fifth of the total species to determine how they relate in an evolutionary and geographical context. It will systematize a huge body of descriptive literature and specimens and provide an online database to names, distributions, and images of crotons. This should facilitate species identification and generation of regional checklists of the genus for any region of the world. There is a strong collaborative element in the project, as it will form a research network drawing upon scores of botanists worldwide who have worked on Croton, as well as training new students in molecular systematics, database management, and field work.
This project is significant to biology because it will provide a much better understanding of the species and relationships of one of the largest and least well understood groups of flowering plants. Croton is used medicinally, and this project could pinpoint promising groups in the genus for more intensive pharmacological research. In a broader context, the project seeks to provide an effective model on how to deal with other large and difficult groups of organisms - using Internet resources to display images, databases, and identification aids; forming a research network of investigators worldwide, including training of graduate and undergraduate students in the U.S. and other countries; and utilizing cutting-edge molecular tools to establish a solid scientific framework for naming species and establishing their genealogical relationships. In this way, the Croton project should contribute significantly towards the societal goal of cataloging and understanding global biodiversity and presenting it to the public in a timely fashion and in a readily accessible format.